Workshop on Research on the Human Dimensions of Global Change; Washington; June 1994

9415829 STERN The maturation of the U.S. Global Change Research Program (US/GCRP) has placed greater emphasis on research on the human dimensions of global change, including the policy sciences. The US/GCRP also is looking to develop more effective methods for conducting integrated assessments that examine the nature and timing of physical, biological, and human systems as well as interactions among those sets of systems and policy options for adapting to or mitigating global change. Agencies like NSF that collectively manage the US/GCRP traditionally have looked to the National Academy of Sciences and the component parts of the National Research Council to provide guidance and feedback regarding planning and conduct of the program. As human dimensions research reaches critical new stages, the NRC Committee on the Human Dimensions of Global Change will conduct a two-day workshop to examine two closely related issues: (1) research needs across the breadth of the human dimensions of global change and in specific areas, such as the policy sciences and methods for integrated assessments; and (2) strengths and weaknesses of various modes of research support (ranging from support for individual investigators to support for centers), including consideration of the relative balance among different modes. This two-day workshop will take place in June 1994 in Washington, with roughly two dozen leading social scientists gathering to share their experiences and opinions with respect to these issues. A written summary of comments will be made available within a few months of the conclusion of the workshop in order to allow others to benefit from the ideas presented at the workshop. Through this workshop, leaders of human dimensions and other global change programs in NSF and other US/GCRP agencies will have to opportunity to hear directly from leading research scientists. The discussions at the workshop also will provide NSF officials with valuable information as it develops plans for possible new modes of research support to facilitate research on the human dimensions of global change.